A New Spectrum of Hierarchical Storage Architectures for High Performance Disk I/Os

This research is investigating the issues related to designs and performance evaluations of several innovative disk I/O architectures. These architectures may improve the I/O response time by orders of magnitude over current state-of-the-art disk architectures for office/engineering workloads. The focus of the research includes: * Minimization of disk write times by means of disk caching disk (DCD). This is a technique of using a small disk to cache writes sequentially, as in a log-structured file system, then using the log to update the file system on the larger disks. * Using a combination of DRAM and DCD to replace non-volatile RAM caches that are currently used in RAID systems. * Using DRAM as a component of the file system to allow fast reads and writes. In this scheme, a log of files written to RAM will be kept in either NVRAM or on disk, but only the RAM access will be in the critical path. * Upgrading existing file servers to emulate DCD using multiple existing disks. These architectures will be investigated using simulation to compare them to existing architectures under a wide range of I/O workloads. New analytical models will also be devised and used in evaluation of architectures. Actual implementations of the DCD architectures will be carried out using disk partitions as caches on the computers in the department. Performance measurements will be performed on the DCD implementations and used to compare with existing disk architectures.